Project SAMPLE

Project SAMPLE, Science and Methodology in Pre-College Learning Experiences, will involve twenty-five rising high school seniors working with five members of the College of Science and Engineering Technology faculty for a period of three weeks in summer, 1989. All twenty-five will participate in research methodology in the fields of chemistry, microbiology, geology and field biology. Experiences will include learning scientific techniques as well as participating in research data collection. Each student will select a discipline and thesis to explore working with one of the faculty as a mentor. A literature search and preparation of a proposal paper will occur before the end of the project. Mini-grants will be available to help support the students individual research during the academic year. Mentors will not only advise these students in their projects but will also involve these students in activities such as professional meetings, field trips, science competitions, and guest lecturer programs.